Stochastic Network Processes

This research is concerned with describing the movement of discrete units in stochastic networks. There is a small class of queueing networks which can presently be solved analytically. These are Markovian and have product form solutions. Extension to this class will be made by considering "partially balanced" networks, which allow for dependencies among nodes and routes (so called intelligent networks). The results of this research will be very important both for the theory and the applications of queueing networks.